Dissertation Research: Evolution of Brooding Patterns AmongGymnolaemate Bryozoans

Bryozoans are a widespread and important group of colonial invertebrates. They have a long evolutionary history and inhabit nearly all types of aquatic environments. Graduate student Michael Temkin proposes a study of the reproductive biology of roughly twenty species of bryozoans, in order to establish their modes of fertilization and development. Temkin proposes to establish whether fertilization and the activation of development are internal or external to the coelomic cavity. The project will use flourescence microscopy and a DNA-specific stain on representatives of 12 families from five suborders. These results will improve our understanding of the evolutionary relationships among different bryozoan groups, as well as the relationship of bryozoans to other lophophorate phyla (phoronids and brachiopods). Little is currently known of the reproductive biology of the bryozoans, and the proposed research will take an important first step towards establishing the value of a new class of data. The results of this project may open a new and valuable tool for unravelling bryozoan evolution.